Acquisition of a Computer Workstation

These investigators will purchase a computer workstation, peripheral equipment, and software. The equipment will be used for modeling studies and molecular dynamics calculations applied to proteins and nucleic acids, for DNA sequence searches, and for molecular mechanics calculations on small molecules. Enzymes to be studied include glutathione S-transferase, epoxide hydrolase, 4- chlorobenzoate dehalogenase, staphylococcal nuclease, and mandelate racemase.